Science Education for Rural Girls: Educational Equity Through Master Teaching

This project builds upon recent work which identified instructional strategies and teaching behaviors which affect the retention of both boys and girls in science courses and careers. The primary purpose of this work is to develop an intervention program which will encourage more girls (as well as boys) to enroll in advanced science and mathematics courses and to promote their interest in scientific careers. To achieve that purpose, five groups will be involved in the intervention program: secondary school biology teachers, students, parents, community and industrial volunteers, and science education researchers. The project will proceed through five stages. A preliminary study will determine the needs of rural biology students, the utility of various intervention materials, and the validity and reliability of selected assessment instruments. Rural biology teachers will be recruited to participate. Next, the selected intervention teachers will participate in a two-week, intensive workshop, conducted by master teachers, to develop a prototype intervention packet and to preview and evaluate commercially available materials. The fourth phase of the project will be actual implementation of the intervention programs in rural high schools. Finally, the evaluation phase of the project will assess the effectiveness of the program and develop an intervention packet suitable for wide and diverse dissemination.